Hispanic Association of Colleges and Universities (HACU) National Internship Program's NSF Scholars

The Hispanic Association of Colleges and Universities (HACU), a national, non-profit organization, has a long and distinguished record of providing summer internship opportunities through the organization's National Internship Program (HNIP). Through HNIP, academically prepared students throughout the US and Puerto Rico have received quality internship assignments through various federal government agencies. Participants are exposed to various career options in the Federal sector that serve as a basis in helping students make informed career choices and solidify career objectives. By partnering with the Federal government, HACU has been able to successfully place over 11,000 students in internships since NIP commenced in 1992. In an effort to continue its collaboration with HACU, the National Science Foundation, a participating government agency, will offer challenging assignments that will broaden the exposure of students pursuing careers in science, technology, engineering and mathematics (STEM). Internships create a unique opportunity to strengthen the human capital infrastructure to achieve excellence in STEM education, and help the Nation prepare a competitive, diverse STEM workforce ready to meet future challenges through discovery and innovation.